Prony Analysis to Identify Synchronous Machine Modeling Parameters

As electric power utilities are faced with the prospect of operating under conditions of ever increasing complexity, the need for accurate system modeling is becoming paramount. Utilities must be able to accurately predict the response of their system due to the installation of new devices or the operation of their existing system closer to constraint boundaries. It is essential that power system simulation models reflect the characteristics of the actual system as accurately as possible. This research would use an innovative approach to lay the foundation for an analysis package that would accurately determine the modeling parameters of synchronous generators using standstill and on-line measurement techniques. The proposed research would establish the feasibility of using a Prony- based algorithm to extract data from various synchronous machine test procedures that have recently been developed for frequency domain parameter identification. It is thought that this new approach, if found to be feasible, will reduce the risk of damage to the synchronous machines under test, provide for faster determination of the required parameters, provide for better noise rejection in evaluating the retrieved waveforms, and be more cost effective to utilities and regulatory agencies.